Analytical and Experimental Studies of a Reduced Scale Model of a Steel Building

This project involves investigations of the seismic response of a model of the six-story steel structure which was tested by the psuedo-dynamic method of applying forces to the building at the Building Research Institute Laboratory at Tsukuba, Japan. This phase of the program is obtaining data on the response of the steel model from various earthquake accelerograms applied to the Berkeley shaking table. The steel model currently being tested on the shaking table is a three-tenths scale model of the six-story, concentrically braced building. Following the completion of this series of experiments, the model will be revised to represent the eccentrically braced frame building which was also tested in Japan. When all the experimental data have been obtained, correlation studies will be made with the full-scale building data to compare results by the two methods of experimentation, to determine scale factor relationships and to verify and/or modify analytical procedures and construction practices.